An Integrated Approach to Microprocessor- and Microcomputer-based Data Acquisition, Data Analysis, and Hardware Design

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Hubin of Kent State University.